Arizona State University Hispanic Math Project

Arizona State University will conduct The Hispanic Math Project (HMP) which has as a major goal to promote the achievements of migrant Hispanic elementary students in mathematics - focusing specifically on the mathematics of measurement. The Hispanic Math Project will be an interactive active video, computer-based learning station to be used with Limited English Proficiency (LEP) students. The math content will be presented by using the formula of form, function and use via multiple media. Audio (spoken language), videodisc (visual), and written language text will interact and enforce one another to provide a near real-life environment for the child. The Integrated Whole Language approach is the theoretical base for the development of the Hispanic Math Project. The learning station's expert system maintains language transparency and provides a natural language interface, which will promote an optimal environment for Hispanic students learning mathematics content. Another important contribution that HMP will provide for migrant Hispanic students is a continuity of performance record through the Migrant Student Record Transfer System (MSRTS). By utilizing the MSRTS mathematics objectives as the basis for the interactive tutorial materials, HMP can establish a clearly defined, transferable profile of a student's math skill level regardless of where the student is within the United States. In summary, the project will develop and explore whether an expert system can interact as a partner and guide to ameliorate math illiteracy for a growing number of minority students.